Laminations and Dehn Surgery on Knots

There has been tremendous success in studying Dehn surgery on knots
through the use of taut foliations and essential laminations. For
example, the property R conjecture, and the property P conjecture for
satellite knots, have been proved using the methods of taut foliations.
The principal investigator plans to study Dehn surgery on knots and links
in 3-manifolds using laminations and branched surfaces. The success of
the project will advance the understanding of the topology of 3 and 4
dimensional manifolds and contribute to the ultimate solutions of some
central problems in this area. The investigator also plans to study tight
laminations in 3-manifolds. A tight lamination is an essential lamination
with a very nice transverse structure and many remarkable properties. One
goal of the proposed research is to prove that if a 3-manifold contains an
essential lamination then it contains a tight lamination. The
investigator will also continue his work on the classification of
essential laminations in hyperbolic punctured-torus bundles, and on the
topological rigidity of laminar 3-manifolds.

Three-manifolds are objects modeled on the 3-dimensional space that we are
living in. For instance, the universe is a 3-manifold and recent study
shows that the universe may have an interesting topological structure. A
natural geometric way of studying 3-manifolds, which has been proved
extremely fruitful, is to view a globally complicated 3-manifold as a
collection of simple 3-dimensional pieces glued together along a
2-dimensional object. The tools used in the proposed research, including
laminations and branched surfaces, provide such useful 2-dimensional
objects. The proposed research is related to some central questions in
low-dimensional topology and knot theory, which impact not only
mathematics, but also physics and other scientific research. A better
understanding of 3-manifolds may help us understand the shape of the
universe, and knot theory is used to study the structure of DNA and its
biological effect.